Mechanics of Sediment Transport in Marine Environments

In this project the P.I. will develop equations describing the saltation and suspension characteristics plus the transport rates that result when poorly sorted marine sediment is transported by bottom currents. Focus will be on parameterization of the effective bed roughness and accounting for mixed sediment grain sizes.